CAREER: Network Information Theory: Coding for Communication, Control, and Computing

Despite significant advances in information theory and its application
to point-to-point communications, a general theory governing optimal
information flow over networks does not yet exist. Except for a few
simple network models, the capacity region of a general memoryless
network remains unknown, due to the complex tradeoff between
competition and cooperation among many nodes in the network. Modern
applications such as sensor networks, peer-to-peer systems, and
distributed storages further bring up a new set of challenging
problems spanning control, estimation, compression, computation,
communication, as well as networking.

This research program provides a common set of conceptual,
mathematical, and algorithmic tools for the emerging convergence of
computation, control, and communication over networks, with the
ultimate goal of developing a unified framework for characterizing
fundamental performance limits of such systems. Towards this goal, we
focus on three concrete problems representing the intersection of
computation, control, and communication -- 1) the capacity of the
relay channel (how to summarize the relay's noisy observation of the
codeword: a list intersection technique via coding for distributed
computing), 2) networked control (how to summarize the observation to
stabilize a linear dynamical system: a variant of rate distortion
coding for control), 3) collision avoidance for multiple access (how
to build cooperation from a common source of randomness: a distributed
generation of correlated random variables). Novel coding schemes will
be proposed, while classical coding techniques will be reinterpreted
and extended to broader applications. An algebraic framework for
capacity regions is also developed to check the optimality of such
coding schemes. The research program is complemented by educational
activities that include the curriculum development for a graduate
course on network information theory and the writing of an accompanied
textbook.